Regulation of Glucose Transport in Yeast

Regulation of Glucose Transport in Yeast: Glucose and galactose transport in yeast cells is regulated by addition of phosphate to the sugars catalyzed by sugar kinases. In cells containing active kinases, the sugars are transported by a high affinity process, which may couple transport and phosphorylation. In the absence of ATP or in mutants deficient in the sugar kinases the sugars are transported by a low affinity, facilitated diffusion process. To understand the mechansims of sugar transport and the basis of its regulation, the sugar carriers are being isolated from yeast cell membranes and reconstituted in artificial proteoliposomes. Three approaches are being used to isolate and purify the carriers: (l) fractionation of membrane extracts, (2) the use of affinity labels, and (3) gene cloning techniques. Most cells can regulate the rate of glucose metabolism by controlling the rate of sugar transport, however, the mechanism of glucose transport is not fully understood much less the mechanism of its regulation. Yeasts are convenient cells in which to study the process of sugar transport and its regulation. They have a high rate of glucose metabolsim and they can be manipulated genetically. The study of sugar transport with the purified carrieres from yeasts should contribute to an understanding of this important process.